Knots in Washington XXI: Skein Modules, Khovanov Homology and Hochschild Homology

Abstract

Award: DMS-0555648
Principal Investigator: Jozef H. Przytycki

This award provides partial support for participants of the 21st
conference in the very successful ``Knots in Washington''
series. This meeting is devoted to Skein Modules, Khovanov
Homology and its relation to Hochschild Homology. ``Khovanov
homology'' is a new development in quantum topology that emerged
in the last several years. It is a generalization of the Jones
and Homflypt polynomials of links to homologies of certain chain
complexes. These homologies turn out to be significantly
stronger than the original invariants. Khovanov's ideas were also
applied to the polynomial invariants of graphs, as well as
Kauffman bracket skein module of some 3-manifolds. One of the
most recent developments is Przytycki's observation that Khovanov
homology (or its comultiplication-free variant developed by
Helme-Guizon and Rong) can be interpreted as Hochschild homology
of underlying algebras. This shows how seemingly distant branches
of mathematics can be put together.

Low dimensional topology studies shapes of three and four
dimensional spaces. These dimensions are of particular interest
to us because they are the dimensions of our space and our
space-time. Knot theory is a subfield of low dimensional
topology, which studies the knottedness in our space. One of the
main goals of knot theory is to distinguish knotted objects. This
is often done by means of the so called "knot invariants,"
functions that replace geometric objects, such as knots, with
those that are easier to compare. Over the past two decades,
there have been a flourish of new invariants in low dimensional
topology, boosted by ideas from gauge theory, quantum algebras,
and mathematical physics. In particular, a new invariant for
knots, developed by Khovanov using ideas from homological
algebra, has sparked a great deal of interest recently. The
purpose of the Knots in Washington Conferences is to bring
together the researchers of the field, including established
mathematicians as well as graduate students and recent PhDs, to
discuss the state of the art of the subject.